The Development of Teacher Enhancement Activities Based Upon Indicators of Institutionalization of an Exemplary Science Curriculum

9355531 Wood This project develops implements, and evaluates a model for providing teacher enhancement activities to schools having maintained exemplary elementary science programs over an extended period of time. The project (1) identifies indicators within and beyond the framework of the concern-based adoption model (CBAM) that measure the extent of institutionalization of exemplary elementary science programs and apply the identified indicators to a study of a SCIS-based program maintained within the Frederick County (MD) Public Schools for twenty years (2) implements teacher enhancement activities within these schools based upon findings from this study, and (3) uses these indicators to evaluate the impact of the enhancement activities and to allow the school system to continuously monitor and respond to its teacher enhancement needs. Eighteen weeks of training are provided to seven science specialists and nine weeks to thirty school-based lead teachers. Project staff and these trained specialists and lead teachers provide training to the remaining 710 teachers in the county based upon their identified needs. Insights are obtained on activities that effectively maintain elementary science programs in schools. ***